GEM: Asymmetry of Magnetic Storms and Its Implication Regarding Ring Current Injection

This project will use a number of indices to study the asymmetric ring current in the Earth's inner magnetosphere. The indices to be used include Asym-H, Dst, VBs, and AL. The analysis will use a combination of case histories, statistical analysis, superposed epoch analysis, linear prediction filtering, LT-UT maps of magnetic perturbations and inversion of line current models of storm time currents. One hypothesis to be tested is that there is no systematic westward propagation of ground perturbations following substorm expansions as the standard substorm models suggests there should be. A database of events used in this analysis will be made available to the scientific community.